Immunological Mechanisms of Nutritional-Induced Regulation of Offspring Survival

9318066 Lochmiller Wild animal populations are known to fluctuate in size from season to season and year to year. Scientists have offered many explanations for such fluctuations, and most, ultimately have attributed these fluctuations to individuals in populations responding to environmental factors via altered mortality and reproduction. Evidence suggests that survival of newborns may be the single most important mechanism influencing overall reproductive success and size of plant-eating animal populations. Unfortunately, difficulties associated with mortality in the wild makes this one of the most poorly understood aspects of animal ecology. Studies in the PI's laboratory on the development of immunity in wild cotton rats (Sigmodon hispidus) will provide a physiological approach to the problem; specifically, concentrating on immunological mechanisms by which the environment influences survival. Initial studies have implicated involvement of the immune system in determining the chances of survival in newborn plant-eating animals as a result of protein malnutrition of their mothers during pregnancy or during early juvenile life. This study will examine that proposed mechanism in two plant-eating rodents whose populations are known to fluctuate either erratically (cotton rats) or cyclically (prairie vole, Microtus ochrogaster) in numbers from year to year, using a series of controlled laboratory feeding trials and monitoring individuals from low and high density populations in the wild. The ability of the immune system to develop and provide protection against disease agents in newborn animals when their mothers are confronted with diets deficient in protein during pregnancy and lactation will be examined, as well if size of populations influences immunity in the wild. ***